Brazil U.S. Cooperative Workshop in Dynamical Systems; Rio de Janeiro, Brazil, July 19-28, 2000

This US-Brazil award supported by the Division of International Programs and the Division of Mathematical Sciences provides funding for a workshop to be held in conjunction with the International Symposium on Dynamical Systems to be held at the Instituto de Matematica Pura e Aplicada (IMPA) in Rio de Janeiro, Brazil, July, 2000. The U.S. organizer is Dr. Sheldon E. Newhouse of Michigan State University; the Brazilian coordinator is Dr. Marcelo Viana of IMPA. This award will fund participation of U.S. mathematicians in both activities, as well as cover expenses for the organization of the workshop.

The workshop will bring together researchers in the area of dynamical systems from all over the world. The field of dynamical systems impacts many areas, such as physics, biology, economics and chemistry. Some of the topics to be discussed are homoclinic bifurcations and the structure of general smooth dynamical systems; dynamics of rational maps of the Riemann sphere and polynomial diffeomorphisms in n-dimensional real and complex spaces; and strange attractors for smooth systems.